GABA-B Receptor Antagonism and the Chemistry of Memory

LAY ABSTRACT Principal Investigator: Staubli, Ursula Proposal Number: IBN-9726779 This proposal is directed at neuronal mechanisms underlying memory processes, with the eventual aim of understanding and addressing memory disorders such as those associated with aging and disease. The target of the research is GABAB, a receptor of y- aminobutyric acid (GABA), the brain's main inhibitory neurotransmitter known to exert a powerful influence on the occurrence of long-lasting synaptic plasticity changes that subserve learning. Our interest in the GABAB receptor emerged from the earlier findings that selective antagonism of the 5-HT3 (serotonin) receptor subtype in awake behaving rats causes a reduction in the firing rate of a subset of hippocampal interneurons, thereby facilitating the induction of synaptic plasticity and causing a robust memory enhancement (Staubli & Xu, 1995; Reznic & Staubli, 1997). Our hypothesis is that the final mediator in the above cascade of effects appeared to be the GABAB receptor. The proposed experiments will use a selective GABAB receptor antagonist with a significantly higher affinity for post- vs. presynaptic receptors. The immediate goals are four-fold: 1) to characterize the different roles of pre- vs. postsynaptic GABAB receptors in modulating synaptic plasticity, thereby reconciling the apparently contradictory findings mentioned above; 2) to establish the concentration range over which GABAB antagonism promotes the formation of different forms of memory; 3) to assess whether GABA8 antagonist administered systemically to freely moving rats facilitates the induction of long-term potentiation (an intensively studied form of synaptic plasticity suspected to be the substrate for certain forms of memory) in hippocampal area CA1; 4) to examine whether bil ateral intrahippocampal infusion of GABAB antagonist facilitates both long-term potentiation and memory in the same animal, at the same time. The knowledge obtained from this work will be invaluable for extracting key neurobiological principles towards a rationale design of compounds directed at memory disorders associated with aging and disease.